Measurement of Aerosol Chemical Composition Versus Size from NCAR C-130 in Aerosol Characterization Experiment (ACE)-Asia

This project supports the deployment of instrumentation to study aerosol chemistry on the C-130 aircraft during ACE-Asia (Aerosol Characterization Experiment). A total aerosol sampler (TAS) will be used to collect aerosols without inlet losses and analyze them for major ions. A micro-orifice impactor will be used to collect size-segregated samples for ion analysis. Samples will be collected on a single stage impactor for analysis of EC/OC (organic/elemental carbon). Procedures for the analysis of these samples using a new EC/OC analyzer will be developed in time for the field deployment. An aerodynamical particle analyzer (APS) will be used to determine particle size distributions in the 0.5 - 10 micron range. In addition, PI Barry Huebert will serve as Lead Scientist for the ACE-Asia experiment.